Acquisition of Instruments in the Center for Complex Structures

This award from the Academic Research Infrastructure (ARI) Program will assist the School of Chemical Sciences at the University of Illionois at Urbana-Champaign upgrade the existing 500 MHz NMR spectrometer. This equipment will enhance research in a number of areas including the following: (1) solid state structural studies of proteins and inorganic systems (2) structural studies of biologically active natural products (3) structural studies of the estrogen receptor (4) structural studies of protein-carbohydrate interactions (5) structures and dynamics of nucleic acid complexes (6) high resolution NMR studies of chemical and biochemical systems at high pressure and (7) sol-gel processing of advanced ceramic materials (8) nanoporous coordination networks (9) donor solvent-assisted synthesis of inorganic materials (10) size effects in dielectric and electrooptic ceramic oxides (11) characterization of electrochemically modified surfaces, and (12) nanporous extended networks based on supramolecular bonding Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology